Evaluation of Phase Stability of Inorganic Materials in Ionic Liquids

This action provides funds for a feasibility project to the Industry/University Cooperative Research Center for Particulate Materials at the Pennsylvania State University. Researchers in the center will collaborate with researchers in the Queen's University , Belfast Northern Ireland to evaluate the phase development and colloidal and interfacial chemistry of inorganic particles in ionic liquids.

It is expected that fundamentally new surface charge models will be required to understand the solid-solution interface in inorganic solid-ionic liquid systems. This will also underpin planned future research on the colloidal stability and processing of bulk materials from particles prepared in ionic liquids.